An Interdisciplinary Interactive Computer Laboratory For theInprovement Of Undergraduate Science and Mathematics Instruction

9350796 Byrd In order to improve undergraduate instruction and enhance student achievement in freshman and sophomore science and mathematics courses at Enterprise State Junior College, an interactive computer facility will be established. More specifically, the goal of the project is to improve mathematics and science instruction, particularly for women, by allowing instructors to develop and apply field tested courseware which will enhance conventional instruction, provide for effective simulations and tutorials, and enable students to acquire skills in using modern laboratory apparatus and instrumentation in the context of designing and conducting meaningful scientific and mathematical inquiries. The project will also add to the body of knowledge related to effective instruction of undergraduates and serve as a model demonstration center for other two-year colleges.